1993 Gordon Research Conference on Solar Plasma Physics and MHD Processes; Plymouth State College, New Hampshire; August 9-13, 1993

9312105 Cruickshank This award provides funds to support the participation of graduate students, junior scientists, and distinguished U.S. and foreign scientists in the Gordon Conference on "Solar Plasma Physics and MHD Processes", to be held at Plymouth State College, New Hampshire, August 9-13, 1993. This is a follow-on to a highly- successful conference held at Plymouth two years ago. It is generally accepted that fluid dynamical and plasma physics processes lie at the heart of solar physics. The interdisciplinary aspects of solar physics are encouraged in the organization of the conference which includes members of the laboratory plasma physics, and fusion physics communities as well as solar and mangetospheric physicists. ***